Global-Scale Photochemistry of Oxidants, Peroxides and Organic Nitrates: A Model-Based Investigation

Through this work the investigators will further develop and apply their global 3-D chemical transport model (IMPACT) to study tropospheric photochemistry and long-range transport. Model enhancements will include the chemistry of organic aromatic compounds, and organic peroxides produced from isoprene. The inclusion of selected reactive nitrogen tracers will enable investigation of long-range transport of reactive nitrogen, ozone and its precursors and the determination of ozone production efficiencies. Data from a variety of recent field campaigns will be compared with model simulation outputs. Results will likely bring about significant advancements in our present understanding of the photochemistry of some key oxidants, peroxides and organic nitrates on the global scale. The broader impacts of this project include providing new and potentially important information on global ozone production, and the effects of human activities on air quality and climate. This project will also contribute to the education and research experience of a graduate student at the University of Michigan.